REG: Large Scale Active Noise and Vibration Control Systems

Kuo 9500365 This REG award is made for the acquisition of multiple- channel real time digital signal processing facilities to support several research projects in engineering. Specifically, these projects include low-frequency active noise control in large-size enclosures, high frequency active noise control in small-and medium-size enclosures, active noise control in free space, acoustic echo cancellation system for large-scale teleconferencing, integrating automotive signal processing, communication, and audio systems, active noise and vibration equalization, and secondary path modeling techniques for active noise structural acoustic control. The equipment is crucial to support real-live experiments in order to augment the theoretical, conceptual and analytical research on active noise and vibration control and acoustic signal processing.***